A Study of Passive Polarimetry for Remote Sensing of the Ocean Wind Vector

9711932 Swift This project is to investigate passive polarimetric remote sensing of the ocean surface wind direction and speed, and to compare this technique to scatterometry. A rich data set will be analyzed to 1) develop an empirical model describing the radiative Stokes parameters dependence on wind, 2) perform a Fourier analysis to characterize the Stokes parameters; 3) compare the results with backscatter signatures, 4) model the physical processes contributing to the response, and 5) evaluate the potential of passive polarimetry for satellite-based sensing of the ocean surface wind vector.